MGE: University of Puerto Rico MGE Institutional Program

HRD-9817642
Manuel Gomez

The University of Puerto Rico (UPR) proposes an Institutional Minority Graduate Education
Program to increase the productivity of its PhD Programs in Biology, Chemistry, Chemical-
Physics, Marine Sciences and Civil Engineering in conferring PhDs to minorities. Building on
the existing pipeline strategy that spans from K-1 2 to graduate research developed with
NSF support, UPR- IMGEP will increase annual degrees conferred from 13 to 26 by the year
2003 and increase enrollment of minority students from the mainland to 30%. The main
strategy is a continuum of support for transition into and completion of Ph.D. studies,
beginning with recruitment strategies of undergraduate students in research, and support
during their first year through a bridging seminar and peer mentors. To increase candidates
for academic careers and future role models for minority students, a Teaching Assistantship
Training Program will be created. In their second and third year, students will participate in
the Increasing Scholarly Productivity Program to support the elaboration of dissertations,
scientific publications and presentations, grantsmanship skills and time management skills.
Two year fellowships will be provided to attract students into critical areas of shortage and
into academic careers. The UPR Vice Presidency and Academic Deans for SMET will lead
the strategic planning and institutionalization of the program. The UPR will cost share
$1.25 million.